Center Evaluator, I/UCRC for Ceramics

ABSTRACT EEC-9702636 Walters, S. George Individual Award Every Industry/University Cooperative Research Center (I/UCRC) has an evaluator to study the university/industry interactions occurring. This award funds an evaluator to perform this study for the Rutgers University I/UCRC for Ceramics.